International Integrated Microdata Access System

This project will create and disseminate an integrated international census database composed of high-precision, high-density samples of individuals and households from seven countries. It will be the world's largest public-use demographic database, with multiple samples from each country enabling analyses across time and space. The project entails two complementary tasks: first, the collection and preservation of data that will support broad-based investigations in the social and behavioral sciences; second, the creation of an innovative system for worldwide web-based access to both metadata and microdata.

Large machine-readable census microdata samples exist for many countries around the world, but access to these data is highly limited and the documentation is often inadequate. Even in the few cases where microdata are available, comparison across countries or time periods is challenging owing to inconsistencies between datasets and inadequate documentation of comparability problems. Because of this, comparative international research based on pooled microdata is rarely attempted. This project will reduce barriers to international research by preserving the microdata samples and making them publicly available, converting them to a consistent format, providing comprehensive documentation, and by developing new web-based tools for disseminating microdata and documentation over the Internet. The project is modeled on the Integrated Public Use Microdata Series (IPUMS), a coherent series of individual-level U.S. census data drawn from 13 census years between 1850 and 1990. By putting all the census samples in a compatible format and integrating their documentation, the IPUMS greatly simplifies the use of multiple census years. Just as important, new methods of electronic dissemination have democratized access to these resources (http://www.ipums.umn.edu).